Studies in Spectroscopy and Quantum Electronics

This proposal is for "Studies in Spectroscopy and Quantum Electronics" and continues a productive and exciting program in laser cooling and trapping. The studies of the cooling and trapping process are aimed at extending the technique of Raman cooling combined with dipole trapping to reach sub- microkelvin temperatures at high densities. The trapped atoms will be use to study atom/atom collisions in the sub micro-Kelvin temperature range and atom/surface collisions with atoms in the sub nano-kelvin temperature range. The cooled and trapped atoms are also being used to study atom interferometry for precision time measurements and for the construction of an atom interferometer for an ultra- sensitive gravimeter. Finally, the techniques for manipulating atoms are being extended to the manipulation of biological molecules to study the motion of enzymes and to measure forces on biological molecules.